A Measurement of the Beta-Asymmetry of the Neutron Utilizing Ultracold Neutrons

he UCNA project has essentially completed construction of their
experiment to measure the beta-asymmetry in the decay of the neutron
using ultracold neutrons (UCN). The UCN source developed for this
measurement, a solid-deuterium superthermal source coupled to a
spallation target at the 800 MeV proton beam at LANSCE, is the first
such source to be constructed. When fully operational, this source
promises ample UCN for the first measurements of the beta-asymmetry.
The preliminary goal of the UCNA collaboration is a measurement of the
beta-asymmetry to a precision of 0.2 percent. During the next funding
period, we plan to refine this measurement, increasing the precision of
the beta-asymmetry (in part by implementing several different beta
detection systems) and initiating a program to measure the other
angular correlations involving detection of the recoil proton following
beta-decay. The existence of this new source will also make possible
the investigation of new uses of UCN for both fundamental and applied
physics research.